Measurement of Dimethylsulfide Oxidation Products in Ice Cores: Methanesulfonic Acid, Dimethylsulfide and Dimethylsulfone

This investigation will determine the distribution in ice cores of the atmospheric oxidation products of dimethylsulfide (DMS) and will investigate their use as chemical tracers for the biogenic component of atmospheric sulfate. The distribution of these tracers and their relationship to non-sea salt sulfate in ice cores will provide new information regarding the speciation of sulfur in paleo-atmospheres and insight into the magnitude and variability of the biogenic component of sulfur in the polar regions. This investigation will use ice cores previously collected from both Greenland and Antarctica.